SHEBA Phase 3 Program Office

This project is part of an integrated set of proposals for the Surface Heat Budget of the Arctic (SHEBA) Ocean project. The goal of the current phase of the SHEBA project is to use data collected during a one year experiment during which an icebreaker frozen into the ice pack of the Beaufort and Chukchi Seas was used as a platform for data collection. A full annual cycle of data relating to feedbacks of the ocean-ice-atmosphere system was collected and will be used to improve model parameterizations of sea ice response to global warming. This project is to manage a Project Office for SHEBA. The office activities include: data analysis, formal presentations, annual workshops, development of gridded images, and public outreach. The activities of this project are an essential organizational effort to enhance the outcome of the research projects designed to enhance mesoscale and General Circulation Models (GCMs) that facilitate better simulations of the Arctic sea ice response to projected global warming trends.